NSF/Sloan Foundation Postdoctoral Research Fellowship in Molecular Evolution

This action funds an NSF - Alfred P. Sloan Foundation Postdoctoral Research Fellowship in Molecular Evolution. The genes coding for proteases and/or beta galactosidases from Antarctic bacteria which are enzymatically active at temperatures below 10C will be compared with homologous enzymes from closely related bacteria (based on 16S-rRNA gene sequences) found at "normal" temperatures. Changes in the amino acid sequence of the enzymes that confer low temperature activity can then be inferred, leading to a greater understanding of the strategies and mechanisms of adaption to cold environments at the molecular level.